Mathematical Sciences: Proximal-like Methods in Optimizationand Applications

This project will focus on approximation methods for a broad class of nonlinear optimization problems. Central to this study will be the construction of regularization schemes based on proximal type methods which play an important role in the development of numerical schemes based on duality and decomposition techniques for large scale problems. A new class of proximal-like mappings associated with closed convex functions is introduced, where the usual quadratic term is replaced by entropy-like distances. When applied to the dual of an optimization problem, this gives rise to a wide variety of new augmented Lagrangian methods which have many attractive properties, not present in the classical quadratic augmented Lagrangian. The main thrust of the proposed research is to follow this approach with an attempt to develop new mathematical tools for the computational and theoretical analysis of optimization problems. Properties of the optimal sets of the regularized problems, the construction of iterative schemes for approximating primal and dual solutions and convergence analysis issues will be studied. Duality methods and decomposition techniques will be used to support the development of efficient computational schemes for convex as well as nonconvex and nondifferentiable problems, by taking advantage of the problem structure that is present in most nonlinear applied problems. Such development will be significant for applying our results to a variety of concrete problems arising from applied sciences and engineering. Proximal methods play an important role in the development of computational methods based on duality theory and of decomposition techniques leading to parallel algorithms. Decomposition of large scale problems is an important and classical topic in applied mathematics and optimization. Recent advances in computer technology have motivated the search for constructing new algorithms for large scale problems, by taking full advantage of certain structures that many nonlinear applied problems may possess. Such problems arise, for example, as a result of a discretization of infinite dimensional optimization and optimal control problems. They arise in a wide range of applications such as optimal shape design, structural optimization, and image reconstruction problems.